A Computer Classroom for Introductory Statistics

9451398 Petruccelli An innovative introductory statistics curriculum is being developed at Worcester Polytechnic Institute under a two year CCD grant from NSF entitled, "A Modular Laboratory nd Project-Based Statistics Curriculum." To support this project, a computer classroom is being constructed which: combines a lecture and demonstration capability; and, provides room for hands-on laboratory activities and the computing power of 25 color X-terminals connected to a central workstation server. The new introductory statistics curriculum is being developed for science, engineering and management students at WPI and as a model for such curricula nationwide. Focusing on the goals of teaching students to think critically about data and having them experience the role of statistics in scientific investigation, the curriculum has among its features: division of the material into one-week modules, each based on a laboratory and project experience; a complete restructuring of course content emphasizing exploratory, graphical, and computational approaches to data analysis and inference; and the incorporation of alternative teaching strategies such as cooperative learning. The modular course structure allows flexi- bility in customizing the course to student and instructor needs, and ensures portability to other institutions. The labs and projects provide students with hands-on experience in using statistical methods in scientific experimentation, data production, and data analysis. The significance of the project is that it provides a setting for trying new and innovative approaches to the course content and delivery of introductory statistics at the college level.